CAREER: Control of Sexual Reproduction in Marine Diatoms: A Molecular and Genetic Approach

P.I.: Armbrust Proposal Number: 97-02158 Institution: University of Washington Title: CAREER: Control of sexual reproduction in marine diatoms: a molecular and genetic approach This Faculty Early Career Development (CAREER) project focuses on the development of molecular genetics in the unicellular algae known as diatoms. Diatoms are one of the most abundant groups of aquatic eukaryotic microorganisms found in nature, with a wide distribution in both marine and freshwater habitats. Due to their dominance in oceanic upwelling zones and in regions over the continental shelves, diatoms play a critical role both in generating the earth's oxygen and in removing carbon dioxide from the atmosphere. The research described in this CAREER project is designed to dissect, at a molecular level, how marine diatoms perceive and respond to environmental change. Environmental stress frequently induces a transition from essentially "immortal" vegetative growth to the terminally differentiated sexual stages. The change in patterns of gene expression that accompanies this transition will be identified. The methods and logic of molecular genetics will also be incorporated into a graduate course on the use of molecular techniques to address ecological questions and an undergraduate fieldwork and research course. Additionally, a short, "hands-on" laboratory course on the use of molecular techniques to study marine organisms will be provided for high school teachers.